The Quantum Trajectory Approach to Problems in Quantum Optics

A new approach to the physics of open quantum systems emitting photons to the environment is developed using a quantum trajectories method. The averages from this ensemble of trajectories reproduce the results of conventional quantum mechanics. The approach has the advantage that it can simulate real time signals and throws new light on the problems of quantum measurement. Another strength of the trajectory approach is that it is a wavefunction based method, which avoids the problems of the more traditional density matrix techniques. The method will be applied to problems in cavity quantum electrodynamics and the interaction of atoms with nonclassical light. The ultimate hope is a self- consistent theory of quantum measurements in optics.